Research in Group Theory

Aschbacher and S. Smith recently completed the classification of the finite
simple quasithin groups. This work fills a significant gap in the
classification of the finite simple groups. Aschbacher and Smith are
editing their manuscript to make it ready for publication. Aschbacher
is continuing his project to produce a unified, accessible, and
complete treatment of the existence, uniqueness, and structure of the
sporadic groups. He is writing up his work on recognition theorems
for small groups with one class of involutions. He is working with
R. Guralnick and K. Magaard on lower bounds on the genus of coverings
with a classical monodromy group. He is investigating the p-radical
subgroups of the sporadic groups.

Groups are algebraic objects of crucial importance in mathematics; for
example they are the basis for the study of symmetry. Finite groups can
be decomposed into building blocks know as ``simple groups"; the
classification theorem lists the simple groups explicitly.
Together with descriptions of the structure and representations of the
simple groups, the classification theorem forms the foundation for the modern
theory of finite groups. Several years ago it was discovered that an
important case in the classification had not been completely treated.
Aschbacher and his collaborator S. Smith have now dealt with this case and
are readying their manuscript for publication, in order to place the
classification theorem on solid ground. The completion of this work,
together with efforts to answer certain questions about the structure
and representations of the simple groups, make up the project.